Postdoctoral Research Fellowship in Biological Informatics for FY-1999

This action funds an NSF Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of biophysics and is entitled "Comparison of three-dimensional protein structures using geometric morphometric methods: an assessment of structural similarity."
Geometric morphometric algorithms are being used to identify proteins with similar three-dimensional structures. These methods compare proteins using the x,y,z coordinates of homologous points and are robust to heterogeneous variation among landmarks. They compare multiple protein structures simultaneously and can thus be used to construct a protein structure space for identifying functionally similar proteins.